Ultrafast Processes & Optoelectronic Properties of Ultrafast Processes & Optf Semiconductor Microstructures, Award in Indian Currency

Technical Narrative: The research project "Ultrafast Processes and Optoelectronic Properties of Semiconductor Microstructures" will be a collaboration between Dr. Arora of the Tata Institute of Fundamental Research, Bombay, India and Dr. Jagdeep Shah at the AT&T Bell Laboratories, Holmdel, N.J. The specific aims of this proposal are: (1) to facilitate cooperation between TIFR scientists and Dr. Shah and his group at the AT&T Bell Laboratories in setting up material and device structure preparation systems and time resolved measurement laboratory required for the study of the ultrafast phenomena in novel semiconductor heterostructure and superlattice systems, and (2) to collaborate in the research programs related to the optoelectronic properties of the above materials. Scope: This proposal is for funds to cover the travel and the per diem expenses of the Principal Investigator and other U.S. scientists participating in this collaboration. The investigation is of great importance from the basic science point of view as the studies will provide fundamental understanding of nonequilibrium carrier dynamics and new optoelectronic phenomena in the above structures. Furthermore, the study is of great practical relevance in understanding the operation of novel devices which have been made from very special thin film heterostructures. This proposal meets the objectives of the U.S. -India Cooperative Science Program. ***